Maine's Energy Future, Maine's Educational Future (MEF)2

The Maine Mathematics and Science Alliance is partnering with Augusta School District, Lake Region School District (Maine SAD 61), Messalonskee School District (Maine SAD 47), Southern Maine Community College, University of Maine at Augusta, and the University of Maine at Farmington highlighting the connections between Maine's Energy Future and Maine's Educational Future (MEF2). The partnership is further supported by the Maine Departments of Education and Labor as well as the Maine STEM Collaborative and the Gulf of Maine Research Institute. MEF2 is preparing 6th to 9th grade science teachers to address the need for students to develop "energy literacy" by going beyond traditional course boundaries to 1) provide a deep understanding of energy processes and resources and 2) demonstrate how these energy principles translate into energy jobs in a state with abundant natural renewable sources of energy (i.e. wind, wave, solar and biomass). The MEF2 project through its governmental partners is informing statewide educational and workforce policies as well as demonstrating the potential of STEM partnerships to bridge the gaps between teachers, scientists from community and four-year colleges, and teacher educators.